ITR/AP: Application of Modern Computing Methods of Plasma Simulation

Modern computation methods (parallel computing and object oriented programming) will be used to develop a plasma simulation code, which will be made freely available. A scheme for domain decomposition is planned which permits nearly arbitrary load balancing. The code will be used to simulate three dimensional problems in advanced acceleration via laser-plasma interactions.